Proxy-based Dissemination of Dynamic Web Data

Emerging web applications are increasingly likely to use dynamic web
data. Traditionally, requests for dynamic data---both time-varying and
dynamically-generated---have been handled directly by servers and
intermediate proxies haven't been allowed to process requests for such
objects (web proxies have been primarily employed to disseminate data
that is mostly static). A pure server-based approach for managing
dynamic data is likely to limit the scalability of emerging web
applications and increase their vulnerability to server failures. To
overcome this drawback, novel proxy-based techniques will be developed
to manage and disseminate dynamic web data. The proposed
research will address two key issues: (i) data dissemination, which
addresses the issue of disseminating time-varying web data using
proxy-based push and pull techniques, and (ii) computation
dissemination, which addresses the issue of moving computations from
servers to proxies so as to dynamically generate web objects at a
proxy. Both techniques have the potential of radically changing the
way web proxies are designed and used. These techniques will need to
satisfy three key requirements: user-cognizance (i.e., awareness
of user and application requirements), intelligence (i.e., the ability
to dynamically choose the most efficient set of mechanisms to service
each application), and adaptivity (i.e., the ability to react to
changing load characteristics). The proposed techniques will be
evaluated using an eclectic mix of simulation, analysis and prototype
implementation.